New Ab Initio Methods for Molecular Quantum Mechanics

This project in the Theoretical and Computational Chemistry Program will apply the mathematical theory of Continuous Groups of Transformations to the chemical problem of determination of molecular potential energy surfaces and relations between surfaces. This will provide explicit functional forms for such surfaces that can obviate much of the computer intensive work currently required to characterize chemical processes at the molecular level.